Genetic Analysis of Distributive Pairing

In order to understand meiosis at a mechanistic level we are dissecting a simple meiotic process which occurs in Drosophila melanogaster. This process, known as distributive pairing, involves the pairing and segregation of chromosomes in the absence of exchange. We have characterized two loci which impair this system, namely the Axs locus, required for chromosome pairing, and nod which is essential for a chromosome modification event that ensures disjunction. We have cloned and sequenced much of the nod locus and have executed a chromosome walk in the Axs region. We now propose to dissect the nod locus by mapping and sequencing seven nod mutations as well as nod-cognate clone from Drosophila simulans. In order to ascertain whether the nod+ gene product belongs to a member of a known family of proteins or represents a novel function, we will determine the primary amino acid sequence of the nod+ gene product by cDNA sequencing. We also propose a transcriptional analysis to determine when in oocyte development the nod locus is expressed. Antibodies produced against the nod gene product will allow us to determine the cellular localization of the nod+ protein. We also propose a genetic screen for mutations in loci which interact with the nod locus. Finally, we propose to clone and sequence the Axs locus. The analysis of this locus will provide crucial insights into the physical basis of pairing. These studies will provide basic molecular information regarding meiotic pairing and segregation. This is a continuation of support for investigation into the mechanisms of chromosome pairing, a crucial step in the transmission of genetic information from one generation to the next. The work to be done under this award carries to the molecular level the genetic analysis begun with the previous award.